Subharmonically-Pumped Schottky Diode Mixers for Quasi- Optical Terahertz Receivers

9320183 WEIKLE This research program will investigate methods for improving the performance of submillimeter Schottky receivers and reducing the requirement for high-power THz local oscillator sources through the use of planar, surface-channel diodes and subharmonic mixing. Schottky diodes operating above 1 THz will be integrated into quasi-optical structures that permit the use of lower-frequency, relatively low-power local oscillators. The RF properties of different diode geometries and integrated planar antennas will also be studied. This program is expected to result in more reliable Schottky diode receivers with reduced local oscillator requirements at THz frequencies. This development will help to open up this important region of the spectrum for millimeter wave imaging, radar, atmospheric chemistry, and monitoring of atmospheric ozone.